Algebraic Dynamics of Knots and Links

DMS-0071004
Daniel S. Silver and Susan G. Williams

Knot theory applications from a newly emerging area
of dynamics, the study of dynamical systems of algebraic
origin, will be developed. The set of representations into
a compact group of the derived group of a link group will
be studied as a dynamical system. New results about knot
symmetries and branched covers of links are expected.
A recently discovered relationship between symbolic
dynamical systems and topological quantum field theory
will be explored. The research will address open questions
in knot theory and dynamics and expand on previous results
in these fields. It will continue a new program of research
in knot theory that incorporates ideas from symbolic
dynamical systems.

The investigation of knots and links has attracted great
attention not only in the mathematical world but also
in the larger scientific community. Knotting and linking
phenomena are found in molecular biology and plasma physics,
for example, while striking similarites in computational
methods arise frequently in theoretical physics. The proposed
research will provide new understanding of knots and links
by using techniques from symbolic dynamical systems,
a mathematical branch of information theory. The research
will also strengthen interaction between researchers in
the fields of topology and dynamics.